RUI: Variation in the Dispersal of Fertilizing Sperm as a Function of Population Density

I seek funding to explore the impact of variation in population density on the dispersal distance of fertilizing sperm (those sperm that successfully fertilize an egg, as opposed to all of the sperm that are released) and the incidence of multiple paternity in a colonial ascidian. Work to date has demonstrated that: 1) Sperm concentration in the field decreases rapidly with distance from isolated males. 2) The fertilization rate of eggs is a function of sperm concentration. These preliminary data suggest that the dispersal distance of fertilizing sperm when multiple males are contributing to fertilization will be much shorter than the distances previously reported for isolated males. If the probability of a given male fertilizing an egg is proportional to the concentration of his sperm relative to that of other males, then the dispersal distance of fertilizing sperm will decrease as population density increases. As a consequence, more males may participate in the fertilization of each female at higher population densities, leading to an increase in multiple paternity within a brood of larvae. I propose to test these hypotheses by establishing populations of ascidians with known genetic markers at different densities and conducting paternity analyses to assay the paternity of brooded larvae after fertilization has occurred. This study will contribute to our knowledge of benthic marine organisms by examining the potential for variation in population density to impact aspects of population structure such as interbreeding population size, levels of inbreeding, relatedness of neighboring individuals or colonies, and gene flow among sub- populations.